An Integrated Multilevel Parallel Computational Methodology and It's Engineering Applications

The purpose of this proposed project is to develop a methodology for designing efficient parallel and distributed algorithms for very large-scale engineering computational problems. A novel systematic algorithm design methodology based on the concept of hierarchy, aggregation, and disaggregation (HAD) will be developed. These three concepts are integrated with the popular techniques of divide-and- conquer, recursion and iteration to form a systematic approach to parallel and distributed algorithm design. To demonstrate the power of this general methodology and to root the methodology is some specific engineering fields, engineering computational problems used as test cacaos. Three parts of this project include: The General Methodology Study, The Large Scale Problems in Data Networks, and Dynamic Programming Problems. Implementations and simulations for all the algorithms developed in the tasks will also be carried out.